Combinatorics, Algebra and Topology of simplicial complexes

This proposal describes four projects aimed to deepen
our understanding of the combinatorics, algebra and topology of
simplicial complexes through the study of their size (or face numbers).
This includes work on the Upper Bound Theorem that has its origins in
the theory of convex polytopes, and the study of the face numbers and
Betti numbers of balanced simplicial complexes, flag complexes, and
complexes with symmetry.

Combinatorics is an active field of mathematics today that has close
connections with many other subjects such as
algebra, geometry and topology, optimization, statistics,
etc. inside mathematics, and computer science, high-energy physics, and
biology outside. Continuing exploring and developing new cross-
pollinations and interactions between combinatorics and other areas of
mathematics is a central intellectual pursuit of this project.
Specifically, this proposal concerns simplicial complexes --- finite
objects that provide the easiest way to represent multi-dimensional shapes
in a computer through their triangulations --- and various bounds on the
sizes of such complexes. The minimal size of a triangulation has taken on
practical significance, since it directly affects the complexity of
computations involving a particular shape.